Workforce Initiative for Nevada Students in Engineering and Technology

The project provides a total of 107 annual scholarships (214 semester scholarships) for students pursuing associate degrees in Computer Engineering Technology, Electrical Engineering Technology, Electronics Engineering Technology, Engineering Science, and Electronics Technology. The project targets students with financial need who have demonstrated aptitude and potential in these disciplines. The principal objectives of the program include increasing full time enrollment in the engineering and technology programs, reducing the average time required for degree completion, improving student retention, enhancing and expanding the college's present education to employment (E2E) transition program, and boosting the enrollment and graduation of female and minority students. Building upon the college's established internship program, the project also provides additional part-time internship opportunities provided by local industry and government during the school year, mentoring for job placement, tutoring opportunities to enhance interpersonal skills, and participation in engineering colloquia series for professional growth.